REU: Research Experience for Undergraduates in the Pharmaceutical Sciences

This is a Research Experiences for Undergraduates project. It provides research experences for ten students at the University of Arkansas. Students will participate in projects involving biochemistry, physiology, chemistry and pharmacology.